Isotopic Measurements on the WAIS/Siple Dome Ice Cores

This award is for support for a program to measure the stable isotope (deuterium to hydrogen and oxygen-18 to oxygen-16) concentrations of ice cores retrieved from Siple Dome as part of the West Antarctic ice sheet program. In addition, the deuterium excess of samples from the Taylor Dome ice core will be determined. This project will approach the question of rapid climate change using ice cores to determine the history of temperature changes, moisture source changes, and elevational changes in the West Antarctic ice sheet. Results from ice cores taken to date in the interior of Antarctica (East and West) are surprisingly lacking in indications of abrupt climate changes, such as those that have been observed in the GISP2 ice core from Summit, Greenland. This work will address the question of whether rapid climate changes, which are known to have occurred in other parts of the southern hemi-sphere, may have also occurred in the coastal regions of West Antarctica. There is some indication from existing records of isotopes in ice cores that the West Antarctic ice sheet may have flushed ice in the past (as evidenced by large changes in elevation of the ice sheet).